US-India Cooperative Research: Application of Carbon Nanotubes in Composites - Alignment and Adhesion Problems

0002061
Fischer

Description: This award supports US-India Cooperative Research: Application of Carbon Nanotubes in Composites -Alignment and Adhesion Problems. US PI John Fischer, University of Pennsylvania and Rakesh B. Mathur, National Physical Laboratory (NPL), New Delhi will conduct research on critical problemsthat need solutions before nanotubes can be successfully used in high strength composites. The objective is to exploit the exceptional mechanical strength of carbon nanotubes for the fabrication of advanced composite materials.

Scope: The research groups compliment one another and each group has highly qualified senior researchers with established research records. Their collaboration is expected to produce advances that increase scientific understanding and enhance prospects for technological use of nanotube composites. The project has clear mutual benefits for the US and India, as well as potential for industrial application.